RUI: Search for Exotic Particles at the MiniBooNE Experiment

This proposal requests support for a group at Bucknell University for a program of research and education in experimental elementary particle physics based on the MiniBooNE experiment at Fermilab. The experiment involves an investigation of the KARMEN timing anomaly and a search for neutral heavy leptons, sterile neutrinos and neutral supersymmetric and axion-like particles. The KARMEN anomaly is an excess of neutrino events detected in the KARMEN experiment at the ISIS spallation neutron facility at Rutherford Appleton Laboratory and may be due to a rare non-Standard Model p+ decay mode: m+Q0 where Q0 denotes a massive, neutral, weakly interacting unstable particle. The study of the anomaly requires a comprehensive investigation of possible background contributions, the main component of the proposed work of the Bucknell group. The work will be performed in collaboration with a group of undergraduates.